CRI: RFID Ecosystem

ABSTRACT

Proposal: CNS 0454394
PI: Kaplan, David L.
CoPIs: Gaetano Borriello, Christopher J. Diorio, Edward D. Lazowska
Institution: University of Washington
Title: CRI: RFID Ecosystem
Program: NSF 04-588 CISE Computing Research Infrastructure

This project will explore applications for RFID tags in homes and workplaces rather than previously studied applications for product supply-chains. Applications relevant to the workplace and home will be explored that will integrate RFID capabilities with other ubiquitous computing technologies. Systems issues to be explored include: innovative RFID tags with additional sensing, middleware and operating-system support for sensing/actuation events, database organization based on distributed data on servers and tags, mining of sensing/actuation events to infer users activities, and ubiquitous computing applications for the workplace. These technologies have deep privacy, legal, social, and policy implications. The project will incorporate researchers in both technology and social aspects of technology. Broader impacts of this project include potential applications, and use in education and design projects at the University of Washington.